Support of American Scholars in the Natural and Social Sciences in Collaborative Research in India Award in U.S. and Indian Currencies

Description: This project provides funds to the Asian Cultural Council (ACC) to support research of scholars selected under the Indo-U.S. Subcommission on Education and Culture. Eight awardees will come from a wide range of scientific fields in the social and physical sciences, and will work with counterparts in India. Funds from this grant are used for travel expenses and costs related to the scholars' research projects, and to pay for stipends for awardees. The ACC scientific committees select nominees for submission to NSF, which makes the final technical evaluation of awardees. Past awardees have been engaged primarily in social and behavioral sciences, with some in the geological and few in physical sciences. The funds provided include U.S. $15,000 to cover part of the ACC administrative work costs. Scope: Collaboration between U.S. and Indian scientists is clearly demonstrated in this project. The ACC representative office in India obtains the necessary clearances for the U.S. scientists to be affiliated with various Indian academic and research institutions. They also manage the logistics associated with the travel of the scientists, and his/her family when appropriate, shipping of research material into and out of India, as well as language training, and assisting with research arrangements. Past performance under similar awards was judged by NSF staff and the U.S. scientific community as being excellent. Funding: This award is for 30 months, with funding provided as follows: FY U.S.Dollars Indian Rupees __ ___________ _____________ 90 15,000 1,500,000 91 15,000 5,813,944